Real-Time Biosensors Using FRET on Microbeads

Buranda
MCB 9907611

MRPG: Real-Time Biosensor Using FRET on Microbeads.

This study is designed to develop biosensor systems suitable for detecting
tagged proteins on bead surfaces. The principle of FRET (flourescence
resonance energy transfer) is applied. While there are other methods
available for the detection of fluorescent proteins, the advantage of this
approach over the existing ones lies in its reversibility and
generalizability, without the need of soluble components. The potential of
its usefulness is very broad. The specific aims are to establish the
conditions needed to observe analyte-mediated, reversible FRET between
tethered components on beads and to examine a selection of ligand-receptor
pairs on beads, thus establishing the ligand-receptor requirements for a
sensor.